Model adaptivity for porous media

The theory of error estimation is of paramount importance to the
computational sciences. Local temporal and spatial grid adaptivity
help to minimize the discretization error at a low computational cost.
In this project the investigator and graduate students pursue a study
of model adaptivity in which the original model represented by a
coupled system of partial differential equations is replaced by
another one which is easier to solve. The main idea of model
adaptivity is to use an appropriate splitting of the total error so
that the discretization and the modeling error are estimated
a-posteriori and controlled locally and globally. Realization of these
ideas depends on a particular application and its numerical
approximation as well as on the relevant quantities of interest which
guide both the grid and model adaptivity. This project will focus on
applications in porous media, in particular on those of multiscale and
preferential type, and on their various conforming and non-conforming
finite element formulations. The researchers will prove new
theoretical results as well as will develop new adaptive algorithms
whose prototype implementations will be available in public domain.

The project will lay foundations for a new class of fast and accurate
computational methods for simulation of natural phenomena occuring
under the Earth's surface such as flow of contaminated water through
and over complex geological formations. While traditional methods use
a fixed model of such phenomena as a basis for computational
simulations, the novel ideas proposed in this research project will
allow to discard those elements of a model which are computationally
costly but which do not have significant impact on the solutions. The
new methods proposed in the project will be evaluated from both
theoretical as well as from practical point of view and can be used in
place of costly sensitivity and parameter studies. The results of the
project will be also applicable to other disciplines such as
engineering design of multiscale materials, large scale simulations of
neutron transport and biomedical applications. Undergraduate and
graduate students will be involved in research and will be trained in
the new and traditional adaptive computational methods and their
applications.